Erosional Response to the Oakland Hills Fire and the Effectiveness of Mitigation Efforts

After the October 1991 Oakland Hills Firestorm destroyed about 3,400 homes and burned about 2,000 acres, an erosion control program has been undertaken on these steep hills. Key questions on the nature of the erosion processes controlled by the burn and on the effectiveness of traditional erosion control measures applied to mitigate the effects of the burn will be addressed in this project. The results of this research will have broad significance in determining the value of the mitigation measures used and of new approaches to control measures.